Tractability of High Dimensional Problems for Quantum and Classical Computers

New proof techniques and new optimal algorithms and complexity
results will be obtained under the grant. Many important scientific and
engineering problems have continuous mathematical formulations. Since
digital computers can only deal with numbers, continuous problem have to
be discretized for input into the computer. Hence the information about
the continuous mathematical problem is partial and contaminated and only
an E-approximation can be obtained. Because the information about the
continuous problem is partial and contaminated
one can use adversary arguments pioneered by the investigators and their
colleagues to obtain computational complexity and optimal algorithms for
important problems. This may be contrasted with discrete problems such as
integer factorization, where one has to settle for conjectures about the
complexity hierarchy. A central issue is to determine for which settings
and spaces a problem is tractable; that is, its complexity is not
exponential. There is a huge literature on the computational complexity of
d-dimensional problems. Most of these papers and books obtain results
which are sharp with respect to 1/E but have, unfortunately, unknown
dependence on d. But to determine if a problem is tractable, we need to
know the dependence on both 1/E and d. This requires new proof techniques.

Many important scientific and engineering problems involve a large
number of variables. Equivalently they are said to be high dimensional.
Examples of such problems occur in quantum mechanics, molecular biology,
and economics. For example, the Schrodinger equation for p particles has
dimension d = 3p; systems with a large number of particles are of great
interest in physics and chemistry. This problem can only be solved
numerically. In decades of work scientists have found that the problems
get increasingly hard as p increases. The investigators believe this does
not stem from a failure to create good numerical methods--the difficulty
is intrinsic. The investigators believe solving the Schrodinger equation
suffers the curse of dimensionality on a classical computer. That is, the
time to solve this problem must grow exponentially with p. (A classical
computer is any machine not based on the principles of quantum
mechanics--all machines in use today are classical computers.) The
investigators hope to show this problem is tractable on a quantum
computer. Success in this research would mark the first instance of a
PROVEN exponential quantum speedup for an important non-artificial
problem.